Computing, Mathematics, and Engineering Technology Capstone Scholars Program

The goal of the Computing, Mathematics and Engineering (CMET) Capstone Scholars program is to provide opportunities to low-income, academically talented students that strengthens their "academic connections" to the university and thereby fosters their continuing full-time enrollment and degree completion in computing, mathematics, and engineering technology. Each scholar works with a faculty mentor, and participates in existing support activities as well as a new series of seminars related to their discipline area; these activities lead to a required capstone experience. Special tracking services enable the scholars to stay on target academically.